STI: Self-Organizing Spectrum Allocation

This proposed research program will address the challenges posed by the continuing
growth of the Internet and shared-spectrum networks in a finite-spectrum world. Current
spectrum allocations are generally either "static," or allow user transmissions insensitive
to nearby users and overall network efficiency. To maximize wireless network
performance it will be necessary to understand and develop efficient "self-organizing
methods of spectrum allocation" in which transceivers cooperate using new wireless
prototcols to locally maximize total wireless channel capacity (bits s-1 Hz-1 m-2) and
network utility (reliability, latency, equity, and economic factors).

The performance limits of alternative architectures for spectrum self-organization will
be explored, including networking schemes: 1) without "side-channel" control
information, 2) with side-channel information from active transmitters only, and 3) side-
channel information from passive ports too, permitting power and antenna control by
local transmitters that boosts network performance. Any side-channel information would
supplement that which is always available by monitoring transmitter emissions.

Methods to be Employed
Urban user and multipath propagation models will be formulated using existing
and/or new wireless data recorded using equipment to be developed. Based on these
models, wireless multi-user network configurations will be statistically analyzed using
quantitative metrics that facilitate understanding and development of alternative self-
organizing approaches to spectrum allocation. New methods for multivariate blind signal
separation will be developed for multi-antenna systems that employ self-organizing
spectrum-allocation strategies. Strategies and protocols for self-organizing wireless
networks will be formulated and tested using these models and metrics, and the results
will be integrated to inform policy makers and technologists of limits and new options.

Intellectual Merit of the Proposed Activity
The intellectual merit lies in the development and evaluation of: 1) new strategies for
efficient cooperative use of wireless spectrum in crowded urban environments, 2)
effective new methods for blind multivariate signal separation, 3) stochastic models for
multi-user wireless multipath environments, and 4) integrated models for the nominal
limits to wireless performance and economics.

Broader Impacts
Successful completion of these program elements should provide a useful
foundation for: 1) formulating telecommunications regulations that promote increased
spectral efficiency and wireless utilization for internet and other services, 2) development
of devices and systems by the private sector that increase spectrum capacity and
utilization, and 3) further research utilizing: the models to be developed for the wireless
environment, the multi-antenna multi-channel wireless sensor, the databases
characterizing the observations and models, improved algorithms for blind separation of
multivariate signals, and new algorithms for self-organizing spectrum allocation.